Modeling & Observation of Electromechanical Interactions in the Magnetic Confinement and Shaping of Molten Metals

Magnetic levitation, confinement and shaping of molten metals will be studied. Modeling of the magnetic field and corresponding metal geometries will build on previous work to develop tools for computing source configurations and to develop improved models of magnetohydrodynamic interactions and instability mechanisms. The models will be validated by experimental studies of the levitation-shaping of thin strips from a flowing metal stream. Initially low-melting metals will be used. Later the studies will be expanded to include liquid steel in medium scale tests.